Interactive Computerized Statistics Classroom

9452229 Hainline This project involves a novel approach to teaching statistics and survey research methods in psychology and sociology. Undergraduates, particularly majors, utilize a computer-equipped classroom/laboratory. A more intuitive method is used and interactive graphics better illustrate statistical concepts. This approach helps lessen students' statistics and computer anxiety. The heavily graphical introduction to undergraduate statistics also integrates the use of computer technology and course materials to introduce statistical concepts and a feeling for exploratory data analysis. Existing undergraduate statistics courses are being modified and specific materials and methods are adapted for use in both fields.